Increasing Student Success in Engineering and the Mathematical Sciences

This grant will establish a scholarship fund to enable talented, low-income undergraduates to pursue baccalaureate degrees at the University of Washington in the College of Engineering, departments of Computer Science and Mathematics, and the Applied and Computational Mathematical Science (ACMS) program. This scholarship fund will significantly expand the amount of financial assistance available to these students, thereby increasing their retention, as well as their competitiveness for permanent job placement or enrollment in graduate degree programs. Scholarship recipients will be linked with an existing integrated network of successful student support programs where they will receive advising, mentoring, and professional development and leadership training. Another benefit, that cannot be underestimated, is that it will maximize the existing integration between the College of Engineering, Computer Science, Mathematics, and ACMS, as well as the University of Washington's (UW) student support structure.